AIT (U.S.) - CCNAA (Taiwan) Cooperative Research: The Complex Microstructures of Electrophoresis Microstructures

This is a three year cooperative study proposed by Dr. Sangtae Kim, the University of Wisconsin, Madison and Professor Huan J. Keh, National Taiwan University supported by the AIT (U.S.) - CCNAA (Taiwan) Cooperative Science Program. This project plans to study the microstructures of electrophoresis. Electrophoresis is one of the most important techniques used in the chemical and biological sciences. Dr. Kim is a leading U.S. researcher in the area of computer simulations and two-phrase flows. Professor Huan J. Ken of the National Taiwan University is a specialist in electrophoresis. Their expertise compliment well and the collaboration is mutually beneficial. This study has been the potential to significantly advance our understanding of the microstructures of electrophoresis.